Interface Structure and Emission Efficiency of Polymeric Light Emitting Diodes

9612370 Gao This multidisciplinary research project addresses basic materials synthesis and processing research on polymers relevant to potential photonic applications such as full color displays; specifically the research aims at greater understanding of interface electron transfer in polymer LED proto-type structures, including the synthesis, processing, fabrication, in-situ and ex-situ characterization, and molecular modeling of such materials and structures. Using surface analytical tools the research will focus on the morphological and electronic structures, chemical reactions, interdiffusion, and charge transfer of those interfaces from a microscopic or atomic viewpoint. The basic goal is to understand fundamental mechanisms, and to utilize this knowledge to demonstrate capabilities for high efficiency performance and longer lifetimes suitable for display technology. %%% The project combines fundamental materials chemistry/physics and materials processing studies with advanced characterization tools and analysis methods to address forefront issues in a topical area, display technology, of high scientific value and potential technological benefits. The research will contribute basic materials science knowledge at a fundamental level to several aspects of advanced polymer light emitting structures and Configurations. The knowledge and understanding gained from this research project is expected to contribute in a general way to improving the performance of advanced display devices by providing a fundamental understanding and a basis for designing and producing improved materials, and materials processing routes. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***